Computational and Theoretical Problems in Fluid Mechanics, Meteorology and Oceanography

Some fundamental problems of meteorology, oceanography, and fluid
mechanics will be addressed. The areas to be covered include a) The open
boundary conditions for limited domains simulations, b) The study of
balanced and unbalanced models in atmosphere sciences, c) Statistical
solutions of Navier-Stokes equations and turbulence. These problems will
be addressed by a robust combination of advanced mathematical tools, and
performant computational tools.

This study is aimed at improving, in the long range, the numerical
simulations on computer of these phenomena whose understanding is
essential for many problems in environment and energy. For instance
problem a) is important for improving local weather predictions with
applications including e.g. agriculture and aviation. Problems b) is
important for understanding the large scale motion of the atmosphere;
however the techniques used (averaging of oscillations) are also needed in
many other fields, in particular biomathematics. Problems c) are more
fundamental in nature, they pertain to the understanding of turbulence,
that is a serious impediment in many studies on energy (and environment).
By its nature the proposal has a strong interdisciplinary component, with
senior geophysicists directly involved in topics a) and b). The proposal
has also a strong educational component (interdisciplinary training of
graduate students and post docs).